New di- and Trinuclear Hydride Complexes of Platinum: Synthesis, Reaction, and Structural Analysis by 2-Dimensional NMR Spectroscopy

9311568 Krevor This project, supported by the Inorganic, Bioinorganic, and Organometallic program, is concerned with the synthesis, reactivity, solution structure and dynamic behavior of di- and trinuclear platinum complexes that contain hydride and/or phosphine ligands. Major emphasis is placed on the use of two-dimensional multinuclear NMR spectroscopy for structure elucidation. This proposal deals with fundamental synthetic and structural studies of compounds of platinum and with new uses of nuclear magnetic resonance as a tool for in situ structural elucidation. The results of this work may have applications in the development of new industrial catalysts.